Workshop: 2002 Gordon Research Conference on Laser Interactions with Materials, July 21-26, 2002 at Proctor Academy, Andover, New Hampshire

This award provide partial support for the 2002 Gordon Research Conference on Laser Interactions with Materials to be held at Proctor Academy in Andover, New Hampshire on July 21-26, 2002. The primary goal of the conference is to bring together investigators from diverse disciplines studying a wide variety of materials systems to share their approaches and progress in unraveling basic mechanisms and applications that arise from laser/material interactions.

The purpose of this conference is to focus on current state-of-the-art and necessary future directions for the field where interactions between all participants is facilitated by several key presentations by a leading scientist in the area. Topics of high current interest include applications to life sciences and medicine; laser processing applicable to nanotechnology, optoelectronics, and future electronics systems; and applications of ultrafast lasers. The program will emphasize participation of a diverse group of participants, including women, minorities, and young investigators